GOALI: Addressable Multielectrode Arrays Based on Membrane Templates: Fabrication, Characterization, and Instrumentation

Professor Cynthia Zoski of Georgia State University and Dr. Peixin He of CH Instruments are funded through a GOALI grant in the Analytical and Surface Chemistry Program. The project is to develop microelectrode arrays as multicomponent sensors for the study of complex samples. Each element of the array consists of a cluster of parallel-connected nano- to micro-sized electrodes. Each cluster can be individually addressed by a multichannel potentiostat. The development of the arrays, including chemical modification of the electrode surfaces and characterization, will be performed at the University, and the instrumentation, circuitry and software will be developed in collaboration with CH Instruments. Array characterization will be carried out, in part, by the novel application of scanning electrochemical microscopy. Target applications include bacterial detection and heavy metal screening.

This research is aimed at developing an instrument that is capable of many applications, including chemical and biological sensing for environmental and homeland security monitoring.